General Purpose Instrumentation Bus Laboratory

This project provides eight (8) General Purpose Instrumentation Bus (GPIB) equipped laboratory stations for undergraduate students in this institution's electrical and electronics engineering program. The stations are used in the first junior-level circuits lab and the first junior-level electronics lab. Each station consists of a triple power supply, a function generator, a digital voltmeter, an oscilloscope, a multiplexing switch, a GPIB controller and a printer. This laboratory configuration permits major revisions in the curriculum impacted by the lab, revisions that take advantage of the changes in technology represented by this lab setup. This award is being matched by an equal sum from the grantee.